Technology and Ethics in Televised Political Advertising

9412925 Kaid Concerns about ethical abuses in televised political advertising have grown substantially as a result of developing video technology. This project will inventory and quantify types of ethical abuses involving technology in televised political ads. The project will emphasize content analysis methods to inventory and quantify types of technological abuses. The project will also use experimental methods for a preliminary testing of whether such technological distortions affect voter judgments of political candidates. The findings of the project will provide researchers, policy makers and political and media professionals with a better understanding of the ways in which technology can affect the American democratic process. A pilot project has found that sixteen percent of sampled political spots from 1952-1992 contain ethically-suspect uses of technology, and that such distortions occur more frequently in negative ads. Results from this project will be disseminated in traditional ways (journal articles and professional convention presentations). A videotape discussing the problem of political ethics and video technology, providing samples of misleading technological applications, will also be produced. ***